Using a Computer Numerically Controlled Milling Machine in a Modern Manufacturing Laboratory

The unmatched advancement in electronics and computer technology has made a huge impact on the machine tool industry in the last few years. In order to be prepared for future challenges in modern manufacturing, it is imperative that students in mechanical engineering and technology have direct experience with Computer Numerically Controlled (CNC) machining. The recent acquisition of CNC equipment (which supplements existing CAD/CAM capabilities) allows students access to a wider range of modern manufacturing laboratory activities through experiences with all phases of CAD/CAM design, from concept to final product. The number of students involved is substantially increased due to the capability of the CNC equipment to perform machining on one project while simultaneously being programmed for the next.